Mathematical Sciences: NSF/AWM Workshops to Encourage and Support Young Women Mathematicians

This project will support three workshops to encourage and support young women mathematicians. The first workshop will be held in conjunction with the twentieth anniversary celebration of the Association for Women in Mathematics (AWM) at the Joint Meeting of the American Mathematical Society (AMS) and the Mathematical Association of America (MAA) in January 1991. Part of the program will consist of an AWM Symposium entitled "The Future of Women in Mathematics;" this symposium will involve approximately ten recent doctoral recipients who will present thirty minute talks on their research. The other planned activities will run concurrently with the Joint Meeting. The other two workshops will be held prior to major mathematical meetings in 1992; the first at the Joint Mathematics Meeting (January 1992) and the second at the national meeting of the Society for Industrial and Applied Mathematics (July 1992). These workshops will bring together women who are recent doctoral recipients or graduate students in mathematics, and several established mathematicians. The workshop participants will be expected to give a brief presentation on their research interests and research environment. It is expected that the opportunity to meet and interact with one another, as well as with a few established mathematicians, will enable the participants to promote their own research and decrease their professional isolation.